U.S.-Chile Cooperative Research: Theoretical Studies of Extended and Localized Electronic States in Semiconductors and in their Low-Dimensional Structures

Rodriguez
0100835
This US-Chile award will provide support for cooperative research to Dr. Sergio Rodriguez of Purdue University to work with Dr. Zdenka Berticevic of Universidad Tecnica Federico Santa Maria and Dr. Monica Pacheco of Universidad de Santiago in Chile on theoretical studies of extended and localized electronic states in semiconductors and their low dimensional structures.
The project will attempt to develop a theoretical understanding of recent experiments with diamond dopands that should have implications for the development of wide band-gap semiconductors useful in many electronic devices. The collaborators will investigate the production of quantum dots in semiconductors making use of complementary facilities and tools at their respective institutions.